ACCESS Engineering (Achieving Community College Excellence, Success, and Scholarship in Engineering)

ACCESS Engineering at Montgomery College seeks to increase the number of underrepresented students earning bachelors degrees in engineering who start their education at a community college. Expanding on best practices and innovations involving subject-matter exposure in high school, intensive peer and faculty support, and strong articulation agreements and programmatic enhancements with select 4-year engineering programs, the project expects to provide 150 scholarships and support to two cohorts during the grant period. Recruited from high schools and college-level math and science classes, students are being selected on the basis of academic potential demonstrated by cognitive as well as non-cognitive correlates of academic success for non-traditional populations. An advisory board including academia, industry, and upper-level students is supporting a project management team of administrators, faculty members, and student services staff.